U.S.-Europe Regional Workshop on Non-Stoichiometry in Semiconductor Heterostructures; Jena, Germany; October 10-14, 1994.

9318766 Bachmann This award supports the participation of seven U.S. scientists, all at early stages of their research careers, in a workshop co-organized by Professor Klaus Bachmann of North Carolina State University and Professor Hans Flietner of the Hahn-Meitner Institute in Berlin. The meeting will be held near Jena, in the eastern part of Germany, in order to facilitate the participation of scientists from Eastern Europe. The objective of the workshop is to promote the exchange of information and the initiation of international cooperative research within the general area of non-stoichiometry in semiconductor heterostructures. Specific topics to be covered in the workshop discussions include imaging and characterization, surface induced ordering and stabilization of growth processes, and electrical methods for detecting deviations from stoichiometry at heterojunctions. In addition, the participants will examine the relation of the properties of heterostructures to the composition, structure and stoichiometry of their interfacial regions. This area of materials research is of considerable current interest and potential applications to electronic materials. Innovative research being carried out in Eastern Europe and the former Soviet Union was not particularly well known in the West. While this situation is changing, the intentional east-west character of this small meeting should considerably increase the exposure of that work and greatly facilitate the development of new collaborative links among U.S., German and Eastern European experts in this important area. ***